Purchase of an Infrared Thermometer and a Radiosonde System

The Department of Meteorology is purchasing an infrared thermometer and a radiosonde system for use by undergraduates at both the beginning and advanced levels. The equipment is used to ascertain the thermal structure of the lower atmosphere. By plotting the temperature, humidity and pressure data, gathered during the ascent of balloon carried sensors, students obtain a real-time picture of the vertical temperature and humidity distribution of the atmosphere from which they determine the stability of the air, the height of clouds, the condensation